Partitioning of Longitudinal Slip in Magmatic Arcs: MesozoicCrustal Structure and Evolution, California-Nevada Border Near 38 Degrees North

9314316 Lahren Within the Sierra Nevada batholith, the Mojave-Snow Lake faults is a right-lateral shear zone with a proposed 400 km displacement of Early Cretaceous age. However the northward continuation of the fault is not known in detail, but may involve oroclinal bending and slip partitioning. This continuation will investigate selected areas in an attempt to find distinctive geological features to define the location of the Mojave-Snow lake fault and evaluate the importance of oroclinal folding. Results will be applicable to regional reconstructions of the southwest and may help develop general models of slip partitioning in magmatic arcs.